Dextrous Manipulation

The overall objective of this project is the creation of a framework for the planning of complex tasks (involving temporal and spatial hand-object relationships) in dexterous manipulation. The hand-object interaction will be exploited to direct a goal oriented manipulation strategy which can produce the functionality required for a general purpose manipulation system. The proposed approach provides an effective integration of the hand and the object. It recognizes the independent nature of the forces that the object`s surface may transmit, and the manipulator`s ability to generate those forces. The proposed control architecture is based on Minsky`s Society of Mind paradigm. The manipulation problem is decomposed so that discrete "agents" can plan the optimal placement of finger contacts on an object. The goals of the different agents are rationalized at a higher level so that a coherent hand strategy is achieved. Although this architecture can, in principle, be applied to any dexterous hand, the Utah/MIT hand has been specifically targeted for experimentation.